Optical Image Algebra

The equipment purchased relates to the utilization of optical images to perform digital computation. There are key questions which must be answered if such computation is to become possible. The effort at the University of Colorado generally is uniquely geared to address these key questions.